Collaborative Research: The Growth of the Tibetan Plateau - A Seismic Investigation of the Qilian Shan and Surrounding Tectonic Blocks

The rise of the Tibetan plateau has profoundly changed the Earth's atmospheric
circulation and climate. For this reason, it has been the prime site to understand the link
between tectonics and climate change as well as the processes of continental collision.
There are several competing hypotheses for the rise of the Tibetan plateau: a rapid and
broad increase in the elevation of the plateau, an expansion of the plateau by
continuous viscous flow of lower crust, or an expansion of the plateau by sequential and
localized shear between coherent crust and mantle blocks. At the center of the
competing scenarios is the question whether the plateau has grown upward en masse
or outward over time. The best place to address this question is the northeast Tibetan
plateau, where the plateau is at a nascent stage with features and dynamic processes
in the crust and shallow mantle that are keys to the understanding of the mechanisms
that may have operated for the entire Tibetan plateau.
This collaborative project between U.S. and Chinese institutions acquires seismic data
from the northeast Tibetan plateau. The research includes detailed studies to image the
crust and mantle structures in the region, to test the current hypotheses against seismic
observations, and to develop new models that integrate seismic observations and other
geological constraints. The research also includes focused studies to analyze regional
earthquake activity, which helps to mitigate earthquake hazards in one of the
seismically most active areas in the interior of a continental plate.